Student Travel Support for 2005 ACM SenSys Support Conference

The purpose of this grant is to provide support for student travel to the Third ACM SenSys conference. The ACM SenSys conference is a new emerging conference covering all aspects of wireless sensor networking, with participants from the USA, Europe, and Asia. This grant offers support for not only student paper authors, but also for student attendees from a state university serving under-represented populations. This conference travel support insures that deserving students will be able to participate in the conference, thereby nurturing the next generation of researchers.